Molecular Phylogenetics and Host Transfer Among Genera and Species in the Leafhopper Tribe Deltocephalini

9306436 Black Leafhoppers are insects that extract nutrients from plants through piercing and sucking mouthparts. Leafhoppers occur on a wide variety of trees, shrubs, herbaceous plants and grasses and can transmit a number of important plant diseases. It is believed that leafhopper species arose through changes in host plant specialization. A species that feeds on several closely related plant species may have come to specialize on one or a leafhopper that fed on one plant species may have broadened its range. Shifts in host plant specialization are believed to have occurred among leafhoppers in the tribe Deltocephalini. Some genera in this tribe have a worldwide distribution and occur on trees and shrubs or alternate between woody and herbaceous plants. Other genera are largely associated with herbaceous plants. One group inhabits primarily grasses in North, Central and South America. From these arose a group that are almost entirely limited to grasses in North America and Mexico. This suggests a progression from widely distributed species that occur on many families of woody and herbaceous plants towards North American and Mexican species that occur exclusively on grasses. The importance of host plant transfer in the origin of leafhopper species is poorly understood because leafhoppers have only a few morphological characters that can be used to separate species and determine the genetic relationships among them. The research of this project will use DNA sequences to estimate genetic relationships among leafhopper species. The goal is to develop an objective phylogeny for leafhoppers that will test the hypothesis that new species arise through host transfer and specialization. %%% The leafhoppers are a group of insects that have economic importance because several members transmit plant diseases to crops, trees, shrubs, etc.. Developing a better understanding of relationships among these insects will serve to explain changes in host pl ant associations which may have potential implications for disease control. The results of this project will also serve as a general model for other insect groups where host plant transfer and specialization is suspected. ***